Conference: FOCS Conference Student and Postdoc Travel Support

This award supports student and postdoctoral fellow attendance at the IEEE Symposium on Foundations of Computer Science (FOCS), to take place during October 31-November 3, 2022, in Denver, Colorado. FOCS is one of the two premier annual research conferences that cover the breadth of theoretical computer science. FOCS has a record of strongly encouraging participation by students, particularly those from under-represented groups. The conference serves as a valuable educational experience both for the technical content of the talks and for the opportunities for networking that it provides.